Geologic Test for Extent of Wisconsinian Glaciation on Southern Baffin Island, Arctic Canada, from Exposure Ages Determined by Radionuclides 26A1 and 10Be

9321733 Davis This award is for support for a project to refine the glacial chronology on southern Baffin Island by determining cosmogenic exposure ages of polished and striated bedrock surfaces and morainal boulders. In order to estimate the timing of deglaciation, the Beryllium-10 and Aluminum-26 in quartz separates from: 1) polished and striated bedrock surfaces on valley bottoms and along fjord sidewalls, and 2) boulders on nested sets of moraines will be measured. Preliminary results suggest that deglaciation in the Pangnirtung area of southern Baffin Island occurred around 7,500 years ago. This work will provide information to help resolve a long-standing controversy in Quaternary science involving the extent of ice sheets in the eastern Canadian Arctic during the late Wisconsinan. ***